Symbolic Dynamics, Smooth Dynamics, and Applications

The proposed project has several related components: 1) We
plan to continue our study of the Schelling segregation
model as a dynamical system. This model, which first arose
in economics, is related to a number of lattice models in
statistical physics like the lattice gas, but more difficult
due to the inherent non-local nature of site coupling; 2) We
plan to study the "rigidity" of periodic point invariants
for symbolic and hyperbolic dynamical systems. These
topological invariants include, for a Holder continuous
function f, the unmarked periodic orbit spectrum, the beta
function P(-s f), and the zeta function. These invariants
are fundamental objects of study in dynamics and statistical
physics, but the information about the function f they
capture is subtle and poorly understood; 3) We plan to
continue our investigation into the distribution of values
of fundamental quantities in ergodic theory (e.g. Lyapunov
exponents, local entropy, and Birkhoff averages) and the
fine structure of the corresponding phase space
decomposition.

The proposed project has several related components: 1) We
plan to continue our study of the Schelling segregation
model as a dynamical system. This model, which was first
proposed by the eminent economist Thomas Schelling, is
related to a number of lattice models in statistical physics
like the lattice gas, but more difficult due to the inherent
non-local nature of site coupling; 2) Pressure is a
fundamental object of study in statistical physics, but even
in highly idealized systems, the information about the
system it captures is subtle and poorly understood. We plan
to study whether certain systems are completely identified
by their pressure. These problems have striking similarities
to fascinating questions which Kac adroitly summarized with
the question "Can you hear the shape of a drum?"; (3) For
ergodic systems, the time average of a function along almost
every orbit equals the spatial average. Only very rarely can
almost every orbit be replaced by every orbit. We plan to
study the fine structure and dimension of the exceptional
set whose time average does not coincide with the spatial
average